DLI-International: Emulation Options for Digital Preservation: Technology Emulation as a Method for Long-Term Access and Preservation of Digital Resources

Abstract

IIS-9905935
Hedstrom, Margaret
University of Michigan
$163,207 - 12 mos.

DLI-International: Emulation Options for Digital Preservation: Technology Emulation as a Method for Long-Term Access and Preservation of Digital Resources

This is the first year funding of a three year continuing award. A team of researchers at the University of Michigan and research staff in the UK from the Cedars project, being run at the Universities of Leeds, Oxford and Cambridge under the aegis of CURL (Consortium of University Research Libraries) will investigate the potential role of emulation in long-term preservation of information in digital form. The project will develop and test a suite of emulation tools, evaluate the costs and benefits of emulation as a preservation strategy for complex multi-media documents and objects, and develop models for collection management decisions about how much effort and resources to invest in exact replication within preservation activity. The project team will assess options for preserving the original functionality and "look and feel" of digital objects and develop preliminary guidelines for the use of different preservation strategies (conversion, migration and emulation).